Composing Data-Rich Embedded Systems the Easy Way

Composing Data-Rich Embedded Systems the Easy Way
-------------------------------------------------

Arvind Krishnamurthy and Henrik Nilsson
Department of Computer Science, Yale University

Embedded computing increasingly takes place in a sensor rich environment where
the acquisition of raw information is much easier than its interpretation. In
addition to building components to process this data, embedded systems
programmers must also arrange the communication among potentially hundreds of
components, distributing computation to the processing elements so as to
minimize communication costs and maximize responsiveness, and scheduling of
the processing elements to adapt to changing priorities and communication
patterns. These challenges must be addressed at the system level rather than
the processor level.

This project develops a framework for composing distributed, data-rich
embedded systems that automates many of the low-level process allocation and
scheduling tasks. It takes place against a backdrop of a "next generation"
humanoid robot currently being developed at Yale. The robot contains a
significant number of processors connected in a heterogeneous fashion. The
project addresses two fundamental research issues. The first is the use of
modern programming language techniques to address critical embedded system
concerns such as composability and dynamic configuration change. The second is
improving overall system performance by exploiting high level system knowledge
in the run-time system. The end result will be a design methodology that will
enable rapid and reliable construction of complex data-rich interactive
systems.